Riverwebs: Crossing Boundaries to Explore the Hidden Mysteries of Streams

The Colorado State University will create and produce "Riverwebs," a one-hour documentary video exploring the hidden mysteries of streams, their intricate food webs and the linkages between streams and forest ecosystems. This project will communicate a body of international and interdisciplinary research on streams in the United States and Japan, and also explore the human experience of doing science. Major film themes are an introduction to stream life, the exploration of stream food webs, and the motivations, friendships and collaborative achievements of stream scientists. By interweaving natural history, scientific and human themes, a holistic story emerges. At the heart of this story is humankind's inherent close relationship with nature, our desire to understand its complexity and our responsibility for its well-being.